Recruiting Diverse Groups of Teachers and Enhancing Capacity in Culturally Responsive Teaching in High-need Schools

This Noyce Track 1 project aims to serve the national need of preparing high-quality teachers to meet the outstanding problem of STEM teacher shortages. Additionally, this project will support 40 scholars with academic backgrounds in mathematics or science, by providing full-tuition scholarships, a research-based teacher preparation curriculum, professional development in STEM pedagogy, university and external mentoring, intensive clinical experiences, and opportunities for travel to professional conferences. The proposed project components will enable high-achieving prospective teachers to become secondary STEM teachers with deep expertise in delivering dynamic, student-centered instruction that enhances learning outcomes.

This project at Lenoir-Rhyne University includes partnerships with Hickory City Schools, Asheville City Schools, and Newton-Conover City Schools as well as community colleges in the northwest region of North Carolina (NC), and 4-year institutions representative of both NC Independent Colleges and Universities and the University of North Carolina system. Project goals include preparing 40 post-baccalaureate candidates to become secondary mathematics and science teachers over a five-year period and positively impacting high need school districts in our region by providing highly qualified STEM teachers. This project will be iteratively evaluated. Evaluation of the project will be guided by the following evaluation questions: (a) How does targeted recruitment of STEM baccalaureate graduates over a broad constituency of partners impact the pipeline of science and math teachers in the region? (b) How effective is an accelerated, online Master of Arts in Teaching program in preparing candidates for success during their initial years in the classroom? The results of this project will be disseminated to help enhance the field. This Track 1: Scholarships and Stipends project is supported through the Robert Noyce Teacher Scholarship Program (Noyce). The Noyce program supports talented STEM undergraduate majors and professionals to become effective K-12 STEM teachers and experienced, exemplary K-12 teachers to become STEM master teachers in high-need school districts. It also supports research on the effectiveness and retention of K-12 STEM teachers in high-need school districts.